Workshop: Nanomanufacturing Occupational and Environmental Health & Safety Workshop; Cincinnati, Ohio; December 4-8, 2006

The specific aims of the Workshop are: (1) to establish evidence-based guidelines for the protection/promotion of individual health and safety along the life cycle of nanomanufacturing, and, (2) to present and address issues of importance to individual health and safety in nanomanufacturing enterprises in different industry sectors and environment.

The Workshop will have a broad impact on industry, public, and academia. The integrated solutions for the protection and promotion of individual health and safety will touch upon the well-being of stakeholders exposed to nano-based products along its life cycle.